Acquisition of a 500 MHz Nuclear Magnetic Resonance Spectrometer

Funds are requested for purchasing a multinuclear 500 MHz nuclear magnetic resonance spectrometer to be shared by twelve research groups in various biochemical, biological and chemical research projects. These users represent various departments on campus (Biochemistry and Biophysics, Chemistry, Agricultural Chemistry, and Pharmacy), making the requested instrument a truly interdisciplinary resource. The research groups are divided into two groups: (1) Major Users (six) who have research projects that require a commitment of instrument time on a 500 MHz spectrometer to study aspects of solution-state dynamics, kinetics and /or structure function relationships of biologically interesting molecules; (2) Minor Users (six) who have research projects in which NMR spectroscopy is not a primary research tool, but can be used to provided valuable data and insight that is not easily obtainable by other methods. The projects that require this new instrumentation include: structural and dynamics studies of DNA-binding proteins and their interactions with DNA; determining the solution structures of DNA uracil glycosylase, its inhibitor, and the enzyme- inhibitor complex; detailed structural studies of marine natural products and antibiotics; identifying specific sites of covalent modification of enzymes by highly specific inactivators; and using oxygen isotope- induced carbon resonance frequency shifts to study the extent of repair in aging proteins. The 500 MHz instrument requested in this proposal will complement the existing equipment in the Departments of Biochemistry and Biophysics, Chemistry, Agricultural Chemistry, and Pharmacy. As a physical method used to characterize molecular structure and dynamics, NMR spectroscopy is uniquely suited for the detailed study of biomacromolecules. The availability of a 500 MHz spectrometer at OSU, as well as the expertise to train users in the collection and analysis of NMR data, represents an important resource and opport unity for researchers to pursue an exciting, state-of-the-art method vital to biophysical research.